The Role of Multiple Adenosine Receptors in the CNS

The use of adenosine analogs as therapeutic agents for epilepsy and stroke has attracted increasing attention in recent years. In the central nervous system, adenosine serves as a powerful neuromodulator and has been shown to act as an endogenous anticonvulsant in certain regions of the brain. Two general classes of adenosine receptors have been identified (i.e. A1 and A2) and evidence has been presented for the existence of at least one additional type of receptor. While the powerful inhibitory action of adenosine A1 receptors on neuronal activity has been well characterized over the last decade, little is known of the physiological role of non.A1 receptors in the CNS. Electrophysiological studies (see below) indicate that non.A1 sites do indeed have a significant impact on electrophysiological responses in the hippocampus. These experiments will utilize intracellular and extracellular recording techniques to define and characterize the functional role(s) of adenosine non.A1 sites in the CNS. Dr. Lee has also demonstrated that A1 receptors are distributed differentially in the hippocampus and that non.A1 sites are associated with presynaptic elements in the stratum lucidum of CA3 and with postsynaptic elements in the stratum pyramidale of CA1. These differences permit meaningful experiments examining regions enriched in non.A1 sites which are associated with known structural elements (i.e. presynaptic or postsynaptic). The first goal of this research project is to define the physiological impact of non.presynaptic sites in the CA3 region. The second goal of these studies is to verify that the observed effects are receptor mediated and to characterize the type(s) of receptor mediating the effects. The third goal is to ascertain whether activation of protein kinase C blocks non.A1 effects, as has been described for other electrophysiological actions of adenosine in the hippocampus. The experiments should provide the first direct evidence regarding the electrophysiological function of adenosine non.A1 sites in the CNS. In addition, the studies should characterize the type(s) of receptor (i.e. A2 or another) mediating non.A1 responses. The results of these studies will greatly enhance our understanding of the adenosine neuromodulatory system and will furnish critical information for the evaluation of specific therapeutic agents designed to target individual components of this system.